Biology and Mechanics: Applications of Mathematics and Computations

The proposed conference brings together world-class researchers from
biology, mechanics, applied mathematics and computational science. It provides an excellent and unique opportunity for scientific discussions, stimulating interactions, and initiating collaborations in the exciting interdisciplinary research area.

The focus of the conference will contribute to the much needed enhancement of the quantitative research on biological phenomena. The conference program will provide opportunities for interdisciplinary training at the interface among biology, mechanics, applied mathematics and computational science for
graduate students and young researchers. Given that UCI is designated as a Minority Institution by the U.S.
Department of Education together with the conference organizers strong commitment to diversity programs, the proposed conference will have a substantial impact on the training of female and underrepresented minority students.